Acquisition of an FT-IR/Raman Spectrometer for Undergraduate Chemistry Education and Research

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Furman University will acquire a Fourier Transform Infrared (FTIR)/Raman spectrometer. This equipment will enhance research in a number of areas: a) the synthesis and characterization of polydiacetylenes; b) novel constrained macrocyclic ligands and their coordination complexes for studies in biocatalysis; c) synthesis and characterization of surface-mounted porphyrin arrays; d) Raman spectroscopy of simple aqueous ions; e) Raman spectroscopy of CO adducts of Lewis acids; f) reactive supramolecular complexes of tris(aryl)diolefins and transition metals; and g) aging of polymer composites. Scientists at area colleges and local industrial laboratories will have access to this equipment.

A Fourier transform infrared/Raman spectrometer is a veritable workhorse in the modern chemical laboratory and can provide important information about molecular and electronic structure. Given that the instrument is robust and easy to use, it is ideal for use by undergraduates in both course work and research. The investigators will also develop new curricular resources for the chemical education community.